Opening The "Black Box" of Science and Technology Policy Making in China: The Case of Biotechnology

This project investigates the making of science policy in China around genetically modified organisms. While science and technology (S&T) have become increasingly important in China's innovation push, the process through which S&T policies have been made is virtually unknown, even to scholars of Chinese S&T. The proposed research reveals the complexity of making policies surrounding biotechnology in China, focusing in particular on research on and the commercialization of genetically modified (GM) crops.

GM related policy-making, in China as well as elsewhere, has involved a variety of actors from the scientific community, the public and media, and non-governmental organizations concerned with environmental protection. Consideration of international trade and regulation has also been an important dimension in the GM policy-making process. This research addresses the complexity in formulating China's policy of research and commercialization of GM crops by employing multiple methods of analysis and a variety of data sources. The researcher will conduct a content analysis of documents published by the Chinese government and other participants such as international environmental groups, media coverage and other public discourse. The researcher will also interview scientists, policy analysts, and other stakeholders in the policy-making process. This project investigates factors that have prompted changes in China's policies on public research investment, biosafety, food safety, trade, and intellectual property rights.

With this framework, the research is expected to enrich scholarly understanding of agenda-setting in China's science policy-making process and shed light on the interactions between science and society in China. The research explores the role of scientists and other stakeholders in order to contribute a better understanding of China's policy-making process to the STS literature on science policy.